Interdisciplinary Laboratory Course in Non-Linear Dynamics

During the past two decades the importance of geometrical methods in the analysis of complex dynamical systems have been recognized. With the advent of high speed computers, these methods are now being applied in a variety of fields. Houever, existing courses in the undergraduate curriculum do not utilize these powerful tools and only emphasize traditional methods for solving differential equations. This project will develop an innovative, interdisciplinary laboratory-based course on nonlinear dynamical systems at the undergraduate level. The course is designed to teach the geometrical methods of dynamical systems analysis to undergraduates in physics, mathematics, biology, chemistry and the engineering sciences and to build an intuitive understanding of the behavior of such systems. The innovative aspects of the course will be interdisciplinary, experimental laboratory exercises and applications of computers and visualization techniques. A significant portion of the development effort is to create laboratory experiments which complement course lectures. These experiments are drawn from a number of areas of dynamical systems theory, including applications in physics, chemistry, biology and electrical and civil engineering. The experiments are used to reinforce the material learned in class and to illustrate the underlying similarities between seemingly unrelated physical systems. This course will serve as a model for other universities and will produce tested material that can be used to build the laboratory component for similar courses.